Presidential Young Investigator Award: A Mathematical Modelfor Nucleate Pool Boiling

The objective of the project is to develop a two-dimensional mathematical model for nucleate pool boiling from a single nucleation site. The conservation equations of mass, momentum, and energy--along with appropriate boundary and initial conditions--will be formulated for this boiling problem. The resulting system of simultaneous equations will be solved in dimensionless form on a computer by using a finite difference method and an accelerated coordinate system which follows the bubble as it detaches from the nucleation site. The resulting solutions may then be compared with the large body of experimental results presently available in the boiling heat transfer literature. Consequently, assumptions about the fundamental physics of boiling found in different boiling models can be verified or disproven. The importance of structures such as the microlayer can be investigated. Parametric studies which are difficult, if not impossible, to do experimentally may be carried out. A study on the effects of parameters such as liquid subcooling, surface superheating, or gravity is possible.